Arithmetic of L-values

Arithmetic of L-values
PI: Glenn Stevens Proposal 0071065

Project Abstract

The principal investigator proposes to continue his work on special
values of L-functions and their relation to arithmetic geometry.
The proposed research would improve our understanding of both
automorphic forms and p-adic cohomology by providing new tools for
studying the former and by providing concrete examples of the latter.
Specifically, the research would extend the applicability of Explicit
Reciprocity Laws to include p-adic analytic families of galois
representations. This, in turn, would provide a new tool for
studying the arithmetic properties of two-variable p-adic
L-functions. It would also clarify how analytic families of galois
representations degenerate at semistable non-crystalline points and
would describe monodromy at such points in terms of a deformation in
the weight direction, thus enlarging the standard picture of
monodromy in potentially useful ways. This research would also
complement Kato's recent work on values of L-functions and K-theory of
modular curves by providing tools for deforming Kato's theory in
p-adic analytic families. In related work, the PI hopes to develop
a p-adic Eichler-Shimura correspondence that would relate his
theory of overconvergent modular symbols to Katz's theory of
overconvergent modular forms and to construct analytic families of
non-ordinary half-integral weight modular forms by generalizing a
p-adic theta lifting developed in earlier work of the PI. Finally,
the PI intends to generalize these ideas to automorphic forms on
other reductive algebraic groups. This research offers promising
tools for the construction of p-adic analytic families of
non-ordinary automorphic representations together with natural
deformation spaces of Galois representations, and
multivariable p-adic L-functions. This is connected with a
number of investigations, including p-adic monodromy, Jochnowitz's
conjectures on the square root of the theta operator, and the
p-adic deformation theory of Galois representations.

The investigations of this proposal belong to the general
mathematical area of Arithmetic Geometry. This ultramodern research
area combines two of the oldest branches of mathematics: number
theory and geometry. New insights arising out of this
combination are producing increasingly powerful tools to solve
longstanding problems like Fermat's Last Theorem, which have
resisted the strongest efforts of over three centuries of
mathematicians. In addition, though Arithmetic Geometry is sometimes
regarded as the purest of pure mathematics, it has also been
developing insightful new techniques leading to dramatic progress in
such applied areas as error-correcting codes and cryptography.